Research Experience for Undergraduates in Chemistry at The College of Wooster

College of Wooster is being supported to establish a Research Experiences for Undergraduates (REU) SITE. The purpose of this SITE is to provide meaningful hands-on research opportunities in contemporary chemistry for outstanding undergraduate students under the supervision of experienced research chemists. The program will support 8 students for the summer of 1987, of which several will be recruited from other institutions. Research activities will include the following: o Synthesis of low molecular weight polyhedral silsesquioxanes o Structural studies of compounds similar to vitamin B-12 o Magnetic resonance and differential scanning Calorimeter studies of the water content in biological tissues